The Portland Horizons Project: Integrating Science Education and Scientific Research

9731541 George During the 3 years of this project, 72 high school and middle school teachers and 36 students will work as members of atmospheric research teams studying each of ten airshed around the Portland, OR metropolitan area. Each summer's activities include a 4-week atmospheric interaction research course and a one-week air quality measurement campaign during a pollution episode. Transfer to the classroom is anticipated through action research projects during the academic year. An interactive webpage will enable all partners to access data, real time models of the atmosphere, and descriptions of the action research projects. A lead high school will serve as the Horizons-Air site for an airshed zone and will work collaboratively with four other middle/high schools, the Horizons-Met sites.